CAREER: Spectral techniques for modern statistical learning and data embedding: robustness, inference, and modeling

Modern advances in data acquisition technologies, data storage capabilities, and generative artificial intelligence systems are revolutionizing how individuals represent, analyze, and learn from data, with downstream implications for science, engineering, business, and everyday life. There is a need to deeply understand the underlying statistical foundations and basic building blocks upon which computations, algorithms, and systems rely, often numerical arrays or matrices and their low-dimensional representations or embeddings, in order to enable the next generation of effective, user-friendly, scalable, interpretable data analysis pipelines. In the present context, this research program will develop novel statistical learning and data embedding tools using spectral techniques, spanning methodology, theory, and applications. The program will bring together investigators from different disciplines and make interdisciplinary contributions in several areas, including Statistics, Psychiatry, Electrical Engineering, and Biology. The investigators will train future members of the STEM workforce by mentoring undergraduate and graduate students, and they will foster connections between large research universities and small liberal arts colleges. The outputs from this research program will include a new monograph on spectral techniques for data analysis, publicly available software, educational materials, and data visualizations.

This research program will advance the development of modern spectral techniques for statistical data analysis, namely approaches rooted in factorizations, truncations, and perturbations of large matrices, with a focus on robustness, inference, and modeling. Regarding robustness, the program will develop new flexible nonparametric procedures for clustering and dimension reduction in complex heterogeneous data settings, with use cases in the study of network neuroscience and schizophrenia in collaboration with investigators in Psychiatry. Regarding inference, the program will develop novel uncertainty quantification capabilities for spectral-based hypothesis testing to discover statistically significant signal in large datasets, contributing to the mathematical foundations of data science in collaboration with investigators in Electrical Engineering. Regarding modeling, the program will develop new approaches for representing and analyzing dependent relational data by integrating concepts from stochastic processes, multilayer graphs, and optimization, with applications to the study of metabolomics in collaboration with investigators in Biology.